Conference on Future Directions for Pollution Prevention R&D; Santa Barbara, California; January 27, 1991.

About 100 people will participate in this conference. They will review industrial pollution prevention research and development to develop needs for future research. They will discuss critical issues and prepare a summary report for selected service sector. The results will be valuable for industrial, academic, and government research planning.